Geographic Population Structure and Species Difference in Ahermatypic Scleractinian Corals

Life history patterns in benthic marine invertebrates display tremendous diversity. This diversity can be found among species living in different habitats or within the same habitat. In this research project the P.I. will study the influence of life-history patterns, environment, and phylogeny on the genetic structure of ahermatypic (lacking symbiotic algae and non-reef building) scleractinian corals from the west coast of North America and the Pacific and Caribbean coasts of Panama by examining: 1) population-genetic structure of co-occurring species with different life-history traits, 2) effects of larval behavior and dispersal on genetic variation and population relatedness (local gene flow), 3) genetic affinities of closely related species (congenerics) from contrasting environments. The goal of this project is to adapt molecular techniques for studies of coral population genetics, evolutionary ecology, and systematics. This study will use a series of molecular techniques (restriction endonuclease patterns of nuclear ribosomal and mitochondrial DNA, polymerase chain reaction, DNA sequencing and DNA fingerprinting) to examine relatedness at several phylogenetic levels. Three genera/ten species of ahermatypic corals have been chosen because they are diverse and abundant in temperate and tropical oceans (from shallow to deep water), and they display different patterns of growth (solitary and colonial) and reproduction (free spawning with pelagic larvae and brooding with benthic larvae). The results of this study will provide information on the selective forces acting on life history patterns, gene flow within and among populations, and models of speciation in the sea.